Particle to Wall Heat Transfer in Circulating Fluidized Beds

Development of commercial-scale plants using circulating fluidized bed (CFB) combustion has been hindered by a lack of understanding concerning the basic mechanisms of heat transfer. This work concentrates on the heat transfer from particles in contact with the wall of the bed, an important and poorly understood component of heat transfer in CFB's. The parameters controlling the heat transfer process are being measured in an existing 20 cm CFB test facility using a particle sensor and capacitance probe for various different particles and fluidization conditions and related to the bed hydrodynamics. The heat transfer coefficient will be predicted and compared to actual heat transfer measurements. This work will produce an increased understanding of the link between heat transfer and hydrodynamics in CFB's, and aid the design of heat transfer surfaces in CFB combustors.